American Leadership Beliefs on Domestic and Foreign Policy A Fourth Phase

This investigation allows the researchers to undertake the fourth phase of the Foreign Policy Leadership Project. The investigators utilize a mail survey sent to 2,200 social, political, and economic leaders in the United States for the purpose of exploring the underlying dimensions and interconnections of policy beliefs, with particular focus on foreign policy. Building on studies undertaken in 1976, 1980, and 1984, the research monitors trends in, and the stability of, elite attitudes. The 1988 study expands the prior investigations by assessing the linkages between domestic and foreign policy. The data set from this project is made available to scholars for additional analyses and represents the most in.depth assessment of the structure of foreign policy attitudes.